Segregation and Mixing in Continuous Fine Particle Phase Granular Flows

Granular materials such as particles, grains, and powders are used in the manufacture of products ranging from medicines and foods to chemicals and consumer goods. During processing and transport, particles frequently de-mix, or segregate, as small particles fall between larger ones. In many industrial processes, de-mixing affects product quality, increases waste, and creates safety hazards such as dust explosions and inhalation of fine particles. Although segregation is common in industrial systems, the physics governing de-mixing of large particles from fine particles, those small enough to easily fit between contacting large particles, is poorly understood. This project combines experiments and computer simulations to investigate the flow, mixing, and de-mixing of fine and large particles. This physics-based, predictive insight is vital to optimize particle processing systems across the chemical, pharmaceutical, food, and consumer product industries. This project supports national priorities to bolster domestic advanced manufacturing and secure less import-dependent supply chains for critical goods, including pharmaceuticals and chemicals.

This project utilizes discrete element method (DEM) simulations and experiments to investigate the flow, mixing, and segregation of a dispersed phase of large particles in a continuous phase of fine particles at large particle size ratios. By examining a wide range of species concentrations, particle size ratios, and industrially relevant chute, shear, and heap flows, the research identifies how large and fine particles move, interact, and segregate under various flow and mixture conditions. The DEM simulations resolve both macroscopic flow behavior and particle-scale mechanisms to pinpoint the physical processes responsible for segregation at large particle size ratios. The resulting physics-based models will enable better prediction and control of mixing and de-mixing across a diverse range of flow conditions pertinent to industrial particle processing systems, thereby improving product consistency, reducing waste, and enhancing safety.